Engineering Research in U.S. Higher Education: Characteristics, Trends, and Policy Options

A primary objective of this study is to develop a detailed understanding of the nature of engineering research activities carried out in U.S. universities. The study will characterize the research that U.S. engineering school faculty members, research staff, and students undertake in order to illuminate key issues concerning the role of research within engineering education and its relation to industry and government. To achieve this objective, a classification scheme will be devised for categorizing engineering school research along several dimensions which will be applied to analyze engineering school research over time, comparing and contrasting the situation today with condition 10 and 20 years ago. National surveys will be conducted of engineering faculty and directors of engineering school research units to obtain information on the nature and outcomes of engineering school research. Parallel studies will examine the impacts of engineering school research utilizing structured content analysis of written outputs and other techniques. Policy options will be developed for consideration by universities, industry and government at a Policy Workshop that will be convened to address several key issues concerning engineering research in U.S. higher education and to provide inputs to the final project report. 9154555 Morgan A primary objective of this study is to develop a detailed understanding of the nature of engineering research activities carried out in U.S. universities. The study will characterize the research that U.S. engineering school faculty members, research staff, and students undertake in order to illuminate key issues concerning the role of research within engineering education and its relation to industry and government. To achieve this objective, a classification scheme will be devised for categorizing engineering school research along several dimensions which will be applied to analyze engineering school research over time, comparing and contrasting the situation today with condition 10 and 20 years ago. National surveys will be conducted of engineering faculty and directors of engineering school research units to obtain information on the nature and outcomes of engineering school research. Parallel studies will examine the impacts of engineering school research utilizing structured content analysis of written outputs and other techniques. Policy options will be developed for consideration by universities, industry and government at a Policy Workshop that will be convened to address several key issues concerning engineering research in U.S. higher education and to provide inputs to the final project report.